Presidential Young Investigator Award: Development of the Next Generation of CAD/CAM Software

This project addresses research in design methodology and interactive graphics. Specifically, it is aimed at the development of computer-aided design software utilizing nonlinear programming algorithms with imbedded artificial intelligence concepts and progress monitoring capability. The final concept evolved will be such that a user would specify the design goals and delimit the feasible design space and then direct the computer to develop the best design for a mechanical system or part thereof.